Wound Modulation of Gene Expression in Plants

The primary objective of this research is to characterize the mRNA population of aged pea epicotyls before and after wounding, as a prerequisite to understanding the molecular basis by which plants respond to this pervasive stress. The hypothesis to be tested suggests that wounding causes disruption of the plasma membrane, thereby permitting a transient influx of calcium. Either directly or indirectly calcium than activates some genes, including genes involved in ethylene biosynthesis. Ethylene turns on different genes, including perhaps genes encoding polysaccaridases which cleave oligosaccharins (elicitors) from cell walls, thereby activating yet another set of genes. Wounding constitutes one of the most pervasive of the stresses to which plants are subjected and is caused by physical factors such as wind and hail, and by biological agents such as large herbivores, insects and fungi. Since wounding by pathogens is such a widespread phenomenon, an understanding of plants' responses to this stress would provide the baseline information common to all injurious pathogens, such that the responses specific to pathogenicity could be more clearly identified. Wounding is also performed, albeit unwittingly, in conventional research, especially in attempts to facilitate uptake of exogenous compounds. Results found here might determine how misleading such protocols are.